Upgrade of a Laboratory Computer System for Magnetospheric Research

ABSTRACT This grant is for support to upgrade an existing laboratory computer which was originally installed in 1983. The laboratory is dedicated to magnetospheric research under the direction of Prof. Roger Arnoldy. The proposed facility is a combination of a high-resolution color graphic work station and multiple PC's with optical disc and tape transport capability. ***